Effect of Th Cell Tolerance on Cell Cycle Components

This research involves a molecular approach to studying the mechanism for peripheral T cell tolerance. Exposure of T lymphocytes to tolerogen in vitro or in vivo inhibits the antigen- specific proliferative capacity of T helper (Th) type 1 (Th1) cells, but not Th type 2 (Th2) cells. A possible mechanism for T cell anergy involves the inappropriate expression or activation of cyclins, highly conserved cell cycle regulatory proteins. The first objective to test this possibility is to characterize cyclin use during cell cycle progression of non-tolerized murine Th1 and Th2 clones. Immunoblotting techniques and H1 histone kinase assays will be used to study the levels and/or activation states of a panel of cyclin mRNAs, cyclin proteins and cyclin-CDK complexes in resting and antigen-activated Th cells. The second objective is to examine the effects of tolerance induction on normal Th1 and Th2 cell cyclin use. Since little is known about cyclin use in mammalian lymphocytes, the results of the experiments described here will be novel, and potentially useful in delineating T cell activation and anergy. %%% The planning activities to be supported by this grant will give the investigator, whose background is in cellular immunology, experience in methods of molecular biology so that she can pursue studies of the molecular basis of the phenomenon of T cell tolerance in immune function.